Workshop Proposal: A Research Agenda for Computing Technology and Dispute Resolution Focusing on the Transportation Sector

One of the Federal government's missions is to act as an unbiased mediator in the resolution of disputes. One avenue for achieving resolution is the court system. There are other avenues, though, such as the National Mediation Board (NMB) which is required to mediate labor disputes in the railway industry.

Building on a three-year collaborative technical project between NSF and NMB, this workshop will develop a broad technical and socio/legal research agenda for on-line dispute resolution and labor negotiation/mediation in Federal transporation agencies. In addition to a report to be widely distributed, the event will allow a forum for a broad selection of interested parties to begin forming a community of interest. Attendees will include lawyers, transportation experts, and computer scientists from academia, industry and Federal agencies that have mediation responsibilities.